Industry/University Cooperative Research Center for AdvancedComputing and Communication

9418533 Rajala The North Carolina State University Industry/University Cooperative Research Center for Advanced Computing and Communication is becoming a multi-university Center with the addition of a research site at Duke University. Four companies are becoming part of the Center inconjunction with Duke University becoming a research site. The research agenda of the new multi-site Center will address high- speed networking, reliable and fault-tolerant systems, digital communication systems, distributed systems, and algorithms and digital image processing algorithms. The researchers are well qualified to perform the Center's research program. The Center is being co-funded with Dr. Yechelzkel Zalcstein in the Division of Computer and Computation Research. The Program Manager recommends North Carolina State University be awarded $55,000 for the first year of a five-year continuing award. This includes $5,000 for an evaluator for the Center. Funding for the second year is to be at the same level amount. Funding for years three through five will be at $30,000 per year (including $5,000 for an evaluator.) Near the end of each 12-month period the Program Manager and/or the Division Director of the Engineering Education Center Division will review the progress of the Center on a number of renewal criteria requirements, including the following: 1) the extent to which the industry/university interaction is developing; 2) the extent to which the support base is developing; and 3) the extent to which a robust research program is developing. If the review is satisfactory, the Program Manager will recommend support for the next period of this continuing award.